Mathematical Sciences: Dynamics, Hyperbolic Geometry and Quasiconformal Maps

The investigator will proceed with his research on iterated quadratic polynomials relative to hyperbolic dynamical systems and analysis of components of the Mandelbrot set. Dynamical systems on algebraic surfaces (K-3 type) and structural studies of Teichmueller space-Bers boundary-using complex analytic techniques will also be investigated.